Matrix Isolation NMR Studies of Reactive Intermediates

Professor Zilm is supported by a grant from the Experimental Physical Chemistry Program to study the structure of metastable molecular fragments captured in a low temperature matrix using nuclear magnetic resonance (NMR) techniques for high resolution studies in the solid state. These studies should provide information on the nature of the intermediates formed during the course of a chemical reaction and thus further our understanding of how chemical reactions occur. A combination of the structure-specific information from high-resolution techniques of solid state NMR and the matrix isolation techniques for reactive intermediates have been demonstrated by Zilm as a useful tool for the transient species produced in a chemical reaction. With new NMR techniques that he has developed he will investigate the structure of singlet biradicals, singlet carbenes and silylenes, singlet nitrenes, ynols, and other species. Dipolar couplings and therefore internuclear distances and relative orientations of bonds will provide detailed structure, and chemical shift tensors will provide additional information about the electron distribution in these fragments. Sensitivity of the NMR techniques will be increased by operating at 20 K.